Cooperative Register Allocation and Instruction Scheduling

9300212 Pollock To exploit the fine-grain parallelism in pipelined, superscalar, and superpipelined machines, various strategies for carefully scheduling instructions at compile time must be developed. Until recently, instruction scheduling and register allocation were treated separately. Conflicts in ordering these two phases reduced the efficiency of the final generated code. Although several efforts have been made to provide communication between instruction scheduling and register allocation, these schemes suffer several significant drawbacks. This research will address the following principal research problems. Strategies will be developed for communication between register allocation and instruction scheduling techniques that schedule across basic block boundaries, in particular, region scheduling and software pipelining. The impact of integrating register allocation of scalars and subscripted variables on instruction scheduling will be investigated to develop cooperative allocation/scheduling schemes. Register allocation and basic block instruction scheduling will be integrated without sacrificing code efficiency. The strategies developed will be compared to other existing strategies for code generation across various architecture configurations and program structures. ***